Isolation and Characterization of a Calcium-dependent Hyaluronanbinding Protein in Rat Liver Sinusoidal Endothelial Cells

This proposal is for study of an extracellular, calcium- dependent receptor which binds the glycosaminoglycan hyaluronan (HA) in liver endothelial cells. HA is a component of extra- cellular matrix, and is involved in cell migration, cell division, tissue organization, and development. One major and two minor poly- peptides have been tentatively identified as the HA receptor using modified HA which has been radioiodinated. The putative receptor will be purified using standard biochemical techniques, the oligo- saccharide specificity will be determined, and polyclonal or mono- clonal antibodies will be produced. The antibodies will then be used to localize the receptor in various cell types. Properties of this receptor will also be compared to the calcium-independent HA receptor, which is involved in binding and endocytosis of HA. %%% One component of the matrix surrounding cells is a polysaccharide called hyaluronan (HA). It is involved in development, tissue organization, cell division, and cell migration. Endothelial cells have a receptor which is involved in removal of HA from the circulation. This proposal is to study the properties of a second HA receptor which was recently discovered. Standard biochemical techniques will be used to purify the protein, and antibodies will be prepared so the location of the receptor in various cell types can be studied. The mechanisms controlling the interaction between extracellular matrix and endothelial cells will be examined.